Connection to Internet

9420963 Lutz Wesley College proposes to network the entire campus and to provide a link between the institution and powerful computing facilities worldwide using SURAnet. This connection will also afford improved sharing of resources by and with other educational institutions by providing connectivity with federal and state agencies and institutions of higher education worldwide. The benefits of the Internet connection include e-mail between local and remote researchers and educators, file transfer capability and the ability to use remote computer resources. Also Wesley College will have the ability to investigate innovation in educational resources and incorporate them into their curricula.